CISE Postdoctoral Research Associates in Experimental Computer Science - Probing Neural Substrates of Behavior

EIA-0072744
Bohringer, Karl
University of Washington

CISE Postdoctoral Associates in Experimental Computer Science: Probing
Neural Substrates of Behavior

The focus of our multi-disciplinary research program is the development of
tools and techniques for multisite intracellular recording in freely
behaving animals. More specifically, we are involved in a
multi-investigator effort to implant a microcomputer into the brain of a
marine mollusk, for the purpose of recording neuronal signals. This effort
comprises three main thrusts: (1) to develop silicon microcomputers that
can record from, and communicate with, multiple neurons in an intact
animal; (2) to develop multi-site intracellular probe arrays, and the
techniques for attaching these arrays to nervous tissue without damaging
either probes or tissue; and (3) to develop neurophysiological preparations
and techniques for surgically implanting both microchips and probe arrays
in live, freely behaving animals, and for recording from these animals in
their natural environment for several hours.